Geometric Analysis on Semi-Hyperbolic Spaces with Variable Curvature

Abstract

Award: DMS-0405385
Principal Investigator: Jianguo Cao

Professor Cao plans to continue his research on the geometric
analysis of semi-hyperbolic spaces with a particular emphasis on
non-positively curved manifolds of rank one. Among all compact
non-positively curved manifolds of rank one, the principal
investigator plans to continue his study of the higher
dimensional generalized graph-manifolds. He would like to
investigate relations among Gromov's minimal volume gap
conjecture, F-structure theory and semi-rigidity for
non-positively curved manifolds. Using the F-structure theory
developed by Cheeger and Gromov, the hopes to show that if a
manifold M admits a metric of non-positive sectional curvature,
then either M has non-vanishing minimal volume or M is a
generalized graph-manifold with zero minimal volume.
Furthermore, the principal investigator intends to verify that,
if M is a compact non-positively curved manifold, which admits an
F-structure, then M indeed is a generalized
graph-manifold. Together with Cheeger and Rong, the principal
investigator recently discovered that, if a compact manifold M of
non-positive sectional curvature is homotopy equivalent to a
compact manifold with an F-structure, then M must have a local
metric splitting structure with nontrivial local tori
factors. The principal investigator would like to continue his
joint research project with Cheeger and Rong in this
direction. In cooperation with Dr. Croke, the principal
investigator also plans to continue his study of rigidity of the
geodesic flow and marked length-spectrum for manifolds of
non-positive sectional curvature. He would like to show that, if
a pair of compact generalized graph-manifolds of non-positive
sectional curvature have the same marked length-spectrum, then
they must be isometric. In addition, the PI would like to
continue his study of positive harmonic functions on manifolds of
rank one and Martin boundary. His research on the sign of the
Euler number of any compact Kaehler a-spherical manifold will
also be continued.

This project focuses on the study of global geometric shape of
non-positively curved spaces. The examples of non-positively
curved spaces include flat tires and surfaces with more than two
holes, such as pretzels. There are also examples of higher
dimensional non-positively curved spaces. Our universe can be
viewed a 3-dimensional space of zero curvature. Dr. Cao is trying
to investigate diameter, volume, spectrum and other geometric
data of those spaces. Cao has also been interested in the study
of the shortest closed curves on non-positively curved spaces. He
has already shown that two such surfaces with possible cusps are
isometric if and only if the data of lengths of all shortest
closed curves on the two surfaces are identical. The data of
lengths of all shortest closed curves on a closed surface M is
called the marked length spectrum of the space M. The study of
marked length spectrum on spaces with boundaries has a number of
applications in modern industry and geological sciences. The
proposed problems involve various aspects of Riemannian geometry
and Kaehler geometry. The techniques developed in the proposed
research will have close connections with other fields in
mathematics, including topology, partial differential equations,
several complex variables and dynamical systems. The solutions to
the proposed problems will advance all these intricately related
fields and open up a vast unexplored area. The proposed study of
the marked length-spectrum and the geodesic flow has close
connections with other branches of sciences including
geosciences.